Biogeochemical Processes Affecting Hydrogen Sulfide and Carbonyl Sulfide in the Oxic Ocean

The biogeochemistry of H.2S and OCS in the oxic ocean will be examined with the objectives (1) to elucidate specific production mechanisms (e.g., for H.2S; OCS hydrolysis, photosynthetic production for OCS; photolysis of dissolved organic sulfur compounds, organic matter regeneration), (2) to evaluate the interactions of H.2S and trace metals, (3) to quantify the sea.air exchange of H.2S, and (4) to examine the sources and long range transport of H.2S and OCS in the major thermocline of the Sargasso Sea. These objectives will be met through field sampling, cooperative studies with trace metal and atmospheric researchers, and laboratory.based experiments. . J H.***//